Planning Conference for Developing a Research Framework forEngineering Economics

Cost over-runs are commonplace today, e.g. in construction of nuclear power plants and mass transit systems, and in the generation of large, complex software programs. Experiments are being made on a trial and error basis to ascertain cost-effectiveness of computer-based factory automation. These and other examples show that there is still much to be learned in the field of engineering economy. Unfortunately, the research community is small and practitioners in industry often have to learn by experience. The purpose of the conference proposed here is to follow-up a conference held at Mountain Lake, Virginia on August 28-29, 1984. A list of research topics was identified at that conference, and placed in priority. It was found that the present scope of the field is too narrow for modern industry and that the topics in the fields should be better organized. The goal of this conference is to remedy these deficiencies through the interchange of a working group of experts from industry and academia.